Beauty, Charm and Tau Physics at CLEO

This grant will support studies of the b (beauty) quark, one of the six types of quarks known to exist. This quark is one of the six types of quarks known to exist. Learning the properties of this quark will help us understand how the different types of quarks are related to each other and how they interact. The ultimate goal of this experiment is to understand why nature is not perfectly symmetric and why, for example, the Universe is comprised of matter and not anti-matter.